Tomographic wavefront sensing for adaptive optics

ABSTRACT

Dekany, R.
"Tomographic Wavefront Sensing for Adaptive Optics"
AST-0096928

Using a new, multiple channel wavefront sensor in conjunction with the
existing Palomar Adaptive Optics System, the researchers will conduct experiments
in atmospheric tomography to reconstruct the three-dimensional distribution of
refractive index fluctuations about the 5m telescope at Palomar Mountain.
This information will be used to answer fundamental questions on the time
evolution of these index fluctuations, including the stability of discreet
turbulence layers in the atmosphere. This information will guide the
development of future advanced adaptive optics systems that use multiple
deformable mirrors to uniformly correct wide fields of view, extending the
usable scientific field for adaptive optics and enabling new scientific
programs.
***